NSF Young Investigator

Develop numerical models and high-performance algorithms for image processing, computer vision and graphics with applications in HDTV, remote sensing, radargrammetry, target recognition and tracking, scientific visualization, computer animation, and computer-aided education. Produce high-quality scientific software for algorithms on parallel or distributed computing systems, and evaluate their performance.